Theoretical Nuclear Physics: A Group Proposal

0098353
Pandharipande
This project continues the ongoing program to develop the fundamental theory of nuclear and other many-Particle systems, with application to astrophysical and condensed matter systems. Nuclear studies emphasize nuclear structure, hadronic structure, electromagnetic properties of the nucleon, and properties of nuclear matter. Research on heavy-ion collisions ranges from studies of the nuclear equation of state to the developing area of ultrarelativistic heavy-ion collisions. The emphasis in astrophysics is on applying nuclear theory to neutron stars and nuclear reaction in the cosmos, with the aim of explaining observations and using observations to learn the properties of matter. Topics in condensed matter physics include Bose-Einstein condensation of excitons in semiconductors and in magnetically trapped atomic systems.